Numerical methods for the moving contact line problem

Contact lines arises as the intersection of fluid interfaces with solid
surfaces. For a long time, this area of study has been plagued with
conflicting theories and uncertainties regarding how the problem should be
modeled. The main difficulty stems from the fact that classical hydrodynamics
(specifically, the Navier-Stokes equation with the no-slip boundary condition)
predicts a non-integrable singularity for the viscous stress at the moving
contact line. In this project, the moving contact line problem is to be
systematically studied with the help of macroscopic thermodynamics,
microscopic molecular dynamics, and numerical simulations. A ``first-
principle'' contact line model is derived based on principles of
thermodynamics and molecular dynamics simulations. Novel numerical methods
will be developed for the contact line model, and will be applied to study
problems of both practical and theoretical interests, including the contact
line dynamics on heterogeneous surfaces. The asymptotic behavior of the
contact line model as the slip length goes to zero will be investigated with
the help of numerics and asymptotic analysis.

A contact line is the intersection of three phases, ofter two fluid phases and
a solid phase. The two fluid phases can either be two immiscible fluids such
as water and oil, or two phases of the same substance, such as the liquid and
vapor phase of water. The solid phase is usually the container for the fluids.
For this reason, the contact line is also the boundary of the interface
between the two fluid phases, and is therefore an ubiquitous part of
interfacial phenomena. Contact lines also arise in many applications such as
coating, printing, oil production, and in many micro-fluidic devices. The main
difficulty of the moving contact line problem stems from the fact that
classical hydrodynamics predicts an infinite rate of energy dissipation which
simply implies that contact lines cannot move. In this project, the PI will
derive a first-principle contact line model based on thermodynamics principles
and molecular dynamics simulations. Novel numerical methods will be developed
and will be applied to study problems of practical interests, such as the
contact line dynamics on heterogeneous surfaces.